Scientific Computing Research Environments for the Mathematical Sciences

NSF Proposal DMS-0215491
PIs: Fairweather, Bialecki, Heremann, Rockwood, and Wang.

ABSTRACT

The new research computing facility in the Department of
Mathematical and Computer Sciences (MCS) at the Colorado
School of Mines will enhance its research computing
infrastructure by providing faculty and graduate students
with a state-of-the-art high performance computing environment.
It will comprise 14 dual processor workstations, each with
1 GB memory and 40 GB hard drive, and a dual processor server
with 2GB memory and 108GB hard drive. The machines will be
configured with the latest version of RedHat Linux. These
machines will be linked with some currently existing
machines at MCS to extend the local distributed network for
high performance computing purposes. Code development will
be completed in the Linux/Unix environment with programming
primarily in C/C++, FORTRAN90/95, and Java. In addition, MCS
has site licenses for Mathematica, Maple, Splus, and Matlab
to provide a full suite of symbolic computing capabilities.

The new research computing environment is required to solve
the complex problems being considered by researchers in MCS,
specifically in the areas of matrix decomposition algorithms,
nodal collocation for partial differential equations,
development of symbolic software for nonlinear partial
differential equations and lattices, data interpolation by
finite element methods, and generalized least squares
interpolation for modeling. Nine of the machines will form
the nucleus of a computer laboratory to be used by graduate
students assisting faculty members in their research. Under
the proposed system, the machines can be used for individual
computing by researchers, and also comprise a distributed
computing network. The purchase of dual processor computers
rather than single processor computers will double the number
of processors in the distributed computing network at a cost
increase of less than 20%. The distributed network will be
used for code development, compilation, debugging, and
production runs.